Flux Motion in Superconducting Arrays and High Temperature Superconductors

The motion of magnetic flux in the form of vortices will be studied both in arrays of Josephson junctions and in thin films of high- temperature superconductors. Simulations of arrays will be made, too. These experiments will form a unique basis for determining the underlying physics of vortex dynamics.